U.S.-Japan Joint Seminar: Quantum Electronic Manipulation of Atoms and Fields/September 1990/Kyoto, Japan

This award will support the participation of six U.S. scientists in a joint U.S.-Japan seminar on the subject of quantum electronic manipulation of atoms and electromagnetic fields. Research in this area is producing both fundamental new insights and new possibilities for applications. Current efforts include the manipulation of atoms and ions through laser cooling and trapping; the manipulation of fields through laser frequency stabilization and by the production of so- called "squeezed" states; and the control of radiative atomic processes through application of principles of cavity quantum electrodynamics. This newly acquired ability to produce "unconventional" states of light and matter that are very different from their normal states is bringing fundamental new insights into quantum mechanics, as well as giving rise to potential applications in such areas as high resolution spectroscopy, precise frequency standards, and gravity wave detection efforts. This comes about because of the possibilities these techniques offer, for example, in reducing both amplitude noise and frequency noise in laser light, and in significantly reducing Doppler effects in atomic spectroscopic studies, leading to more accurate determinations of atomic energy levels and precise measurements of frequencies and time. Specific topics to be discussed at the seminar include (1) physics and applications of trapped, cooled ions; (2) laser cooling and trapping of neutral atoms; (3) ultrahigh precision control of lasers; (4) generation of unconventional states of light; and (5) cavity quantum electrodynamics. Participants will include many of the U.S. and Japanese researchers most active in this set of strongly interrelated topical areas. The seminar will be held September 3-7, 1990, in Kyoto, Japan. Co-organizers are Dr. William D. Phillips, Center for Atomic, Molecular, and Optical Physics, National Institute of Standards and Technology; and Dr. Fujio Shimizu, Faculty of Engineering, University of Tokyo, Japan. Previous related U.S.-Japan seminars in laser spectroscopy, quantum optics, and quantum electronics served to keep the relevant research communities in the two countries abreast of each other's current progress, and to stimulate collaborative projects and exchanges of scientists. This seminar is expected to be similarly effective.